Stability And Performance Of Human-Machine Interaction In Telerobotics

This research introduces a new control architecture for master- slave telerobotic systems. Common architectures used in telerobotics are the "position error architecture" and the "forward flow architecture." The proposed architecture extends these two architectures. It utilizes the exchange of power and information signals between a master robot, which controls a slave robot, and the human arm that is in physical contact with the master. The human wears the master robot, so power transfer is unavoidable and information signals from the human help to control the machine. Local force feedback at the master can increase the apparent sensitivity of the master to human input commands. In the present case, force information is communicated in both directions. Balance is maintained between the stability requirements of the master and the requirements for human control. Master motion is partially due to the transfer of human power and partially due to the command generated by the controller computer. The design of the controller is based on dynamic models of the human arm and the environment. The human arm dynamic behavior is modeled as a functional relationship between a set of input and outputs. The internal structures and operations of the model components are implicitly accounted for. An estimator creates the human arm dynamic model using a learning model. It accepts information using human electromyograph (EMG) signals, arm orientations and contact forces. Dynamic behavior of the database of experimentally verified human arm (EMG) impedances for regions of arm orientation is used to arrive at a time-varying, human sensitivity function. A learning model accounts for non-calibrated regions. The learning model uses a measure of the EMG signals (time or frequency domain) as a index to derive human impedance as a function of a cognitive command. Changes in system performance and system stability will be investigated experimentally as a function of changes in the human and the environmental load dynamics. The results will be compared to similar results obtained when telepresence governs the system performance. The architecture allows convenient mapping of variables into telerobotic design specifications. This research advances a knowledge-based methodology and will lead to an understanding of the role of human dynamics and constraints in the control of telerobotic systems and in other types of human-computer interactions.